Geometrics Algorithms in Statistics, Meshing, and Parametric Optimization

The goal of this research is to solve algorithmic problems from application
areas by visualizing the problem data in terms of a related geometric
space, using this visualization to develop an improved mathematical
understanding of these problems, and combining this understanding with the
techniques of computational geometry to develop efficient algorithms for
the problems. Particular problem domains targeted by this project include
(1) generation of unstructured quadrilateral and cuboid meshes for the
finite element method; (2) robust methods for fitting hyperplanes or other
geometric shapes to sets of data points; and (3) adaptive user interface
problems, for example tuning the relative weights of parameters such as
distance, travel time, or scenic value in a vehicle routing system, to make
it produce routes that more closely match driver preferences. All of these
areas relate to fundamental geometric problems of partitioning spaces by
arrangements of curves or surfaces. A further connecting theme in the
proposed research is the use of topological methods to separate global
shape properties from local geometric attributes, and to provide a precise
language for discussing these properties. The investigator will apply a
conscious focus on computational topology to accelerate progress in
geometric computing.